Fourteenth International Congress of Biochemistry, Prague, Czechoslovakia, July 10-15, 1988

This award will enable the U.S. National Committee for the International Union of Biochemistry (IUB) to support effective and numerically adequate travel of U.S. participants in the 14th International Congress of Biochemistry. This Congress, to be convened under the auspices of the Czechoslovak National Committee of Biochemistry, The Czechoslovak Biochemical Society, and the Institute of Organic Chemistry and Biochemistry, Czechoslovak Academy of Sciences and the IUB, will be held in Prague, Czechoslovakia during the period July 10-15, 1988. A Travel Award Committee will be named to select from applicants those best qualified to represent U.S. biochemistry with due regard for equitable distribution of grants based on geographic location, scientific interest, minority status, age, identification with learned and professional societies, participation in past Congresses, and general standing in the scientific community. In addition to the grant support, the American Society of Biological Chemists and the American Chemical Society will contribute over $400,000 toward travel support. This is an important international meeting, and the travel support provided will help to assure an appropriate level of participation by U.S. biochemists.